A Scientific Ocean Drilling Coordinating Office for the US Community

Two hundred million years of Earth history are locked in sediments and rocks beneath the world ocean. Scientific ocean drilling uses specialized vessels, platforms, and technology to access to this archive and recover geologic cores from deep beneath the seafloor. Analyses on these cores play a critical role in advancing the understanding of the systems that have shaped the Earth. Priority themes for scientific ocean drilling include geohazards, the global carbon cycle, ice sheet dynamics, and sea level rise.

This project will support a Scientific Ocean Drilling Coordinating Office (SODCO) to facilitate U.S. scientific ocean drilling goals with a staff of engineers, scientists, technical specialists, management specialists, and communications specialists. SODCO will collaborate with principal investigators to plan and implement expeditions. Acquisition of customized seagoing containers will provide critical instrumentation and support for at-sea data collection, while on-shore laboratory facilities will be available for shore-based description and measurements. SODCO will support community engagement activities, provide research opportunities and workforce training to undergraduate students, and conduct public outreach presentations.